Algebraic Cohomolgy and Deformation Theory

July 2, 199619602105 Jones Description: This proposal requests support for a new research collaboration in ecological studies entitled "Seasonal Variation in the Limnology of Subtropical Lakes in Nepal as Controlled by Monsoon Climate." The PIs are Dr.J.Jones of the University of Missouri (MU) and Drs.J.McEachern/T.B.Shrestha of the World Conservation Union (IUCN), Kathmandu. The PIs will conduct a two-year limnological study of warm monomictic and warm polymictic lakes in Nepal located in differing land-use regimes. Seasonal variability in trophic state, ionic salinity, nutrient limitation, phytoplankton composition and biomass, and algal toxins will be measured. The attributes of cyanobacteria will be related to limnological features to determine seasonal patterns. This research will advance our understanding of how the monsoon climate influences lakes and will contribute to the modest data base on lake seasonality in Nepal. Scope: This project will be conducted under a Momorandum of Understanding between the MU and the IUCN-Nepal which is leading a national effort for conservation and management of wetlands. Included is a reconnaissance survey of water chemistry, fauna and flora, and an electronic database of wetlands throughout the country. The IUCN will share costs for field collections, MU will process water samples for data on water quality and algal toxins. The research findings will be jointly published. *** Pakistan and is the next step in developing a relationship between scientists who are doing research in this field. s area of research. ngoing relationship in the exchange of information foin developing . The International Conference on Non-Accelerator Particle Physics will convene in Bangalore, India from January 2-9, 1994. Gaurang B. Yodh, University of California, Irvine and R. Cowsik, Tata Institute of Fundamental Research and Director, Ind ian Institute of Astrophysics, Bangalore are the organizers. This conference is dedicated to the discussion of the fundamental physics that emerges from diverse areas of non-accelerator particle physics such as: Solar Neutrino Astronomy, Cosmic Rays, Particle Physics, Neutrino Physics and the Detection of Dark Matter. Substantial progress has been made in these fields during the past five years and it is widely thought that definitive answers to several questions of Physics beyond the Standard Model can now come from Non-Accelerator methods of inquiry. The conferees will review recent developments in the various aspects of Particle Physics, their implications in astrophysical situations, experimental detection of dark matter, theoretical interpretation and empirical and physical models of the large scale structure of the Universe. Scope: This conference will precede a major interdisciplinary research program between the Indian Institute of Astrophysics and the University of California, Irvine. As considerable research is going on in the US in all fields to be discussed at this conference, it will be important for the US researchers to present their work to an international body of some of the most respected scientists from all over the world. ***